CAREER: Automated Software Understanding for Retargeting Embedded Image Processing Software for Data Parallel Execution

This research applies software understanding and reengineering
techniques to the problem of retargeting embedded image processing
software to emerging parallel architectures that are capable of
efficiently exploiting the inherent data parallelism in these
applications. Image and video processing software is found in a wide
range of embedded devices. There is a significant demand for
low-power, compact imaging devices, e.g., for smart cameras, wearable
computers, and autonomous vehicle vision systems. Migrating image and
video processing programs to new or extended hardware platforms that
support data parallel execution will greatly enhance the image
processing capabilities and sophistication of embedded devices. This
research seeks to automatically expose the inherent data parallelism
in these applications to fuel a new generation of high performance,
high efficiency embedded processing systems. Software understanding
techniques are being used to provide a deep model of what computation
is being performed so that a broader set of parallelization
transformations can be accomplished and more opportunities for
parallelization can be identified. This work also integrates
software reengineering more fully into the education of computer
engineers and scientists, and help students learn parallel processing
concepts. It will support interactive application of parallelizing
transformations and allow students to sharpen their discovery and
problem solving skills